Collaborative Research: Center for Health Management Research

The Center for Health Management Research, then based at Arizona State University (since moved to the University of Washington), received its initial designation as an Industry/University Cooperative Research Center in July 1992. From the outset, this has been a multi-university center, drawing its academic resources from a consortium of 15 universities.

The goals for the Center are to: 1) Develop a research agenda in collaboration with the corporate members; 2) Undertake research, development, and evaluation projects on behalf of the corporate members; 3) Disseminate to the members findings of health services research; 4) Identify and disseminate to the members successful innovations and management practices from other health care organizations; and 4) Identify and disseminate to the members relevant research findings, successful innovations, and management practices from other industries.